Characterization of Factors Affecting Sensitivity in Desorption Ionization Mass Spectrometry

This research is in the general area of analytical and surface chemistry and in the subfield of mass spectrometry. The goal of this project is to assess and identify factors which affect the sensitivity of matrix-assisted desorption ionization (DI) mass spectrometry. The objective is to learn how to tailor matrix properties to obtain optimum sensitivity for a given sample. Particular emphasis will be placed on understanding the role of water as a co-solvent in flow-fast atom bombardment (flow-FAB) measurements. The importance of the primary atom beam characteristics (flux, mass, and energy) in FAB measurements will also be assessed. This research is designed to better understand how the sample composition affects the ionization of specific components. This information can be used to design specific sample compositions which will permit components to be determined at lower concentrations.